Transport Properties of Sol Gel Derived Glasses, Award in Indian Currency

Description: This project supports collaborative research by Dr. H. Jain, Materials Science and Engineering Department, Lehigh University and Dr. D. Chakravorty, Department of Materials Science, Indian Association for the Cultivation of Science, Calcutta, India. The research is directed at a better understanding of ion movement in glass. One objective is to relate the ion-ion correlation and Two Level Systems (TLS) parameters with some material characteristics by determining the effect of a systematic variation of composition on ac electrical and nuclear spin relaxation (NSR) behaviors, the role of amorphousness will be examined independently. The chemical characteristics will be modified by doping, and the physical characteristics will be changed by changing alkali ions. The work by the two scientists should lead to better understanding of the effect of preparation of glass by sol-gel and by melt methods on the structural properties and the composition. Scope: The two scientists are highly qualified to do this advanced research. Their departments are well known in the respective countries for pioneering research in materials science. The research is in an area of considerable interest to the U.S. and to India. The collaboration is highly likely to produce significant research results. Funding: The project is being supported under two grants: INT 8820152 to Lehigh University FY89 $5,157 in Indian Currency FY90 $5,157 in Indian Currency +U.S. $29,793 FY91 $5,157 in Indian Currency +U.S. $29,794 INT 8914163 to the Indian Association for the Cultivation of Science: FY89 $98,786 Indian Currency